1992 Gordon Research Conference on Photonuclear Reactions; Tilton, New Hampshire; August 10-14, 1992

This grant provides support for speakers and conferees at the 1992 Gordon Research Conference on Photonuclear Reactions. The conference will be held in Tilton, New Hampshire, 10-14 August 1992.